Synthesis of Poly(ethylene Oxide) Rotaxane Networks

9308485 Pugh Bis(rotaxane) monomers and polyrotaxane networks based on oxyethylene repeat units will be synthesized. This is a new topology for both monomers and polymer networks. Comparison of statistical and directed threading under standard conditions, as well as under conditions which induce hydrophobic and solvophobic interactions will provide a through study of the extent of threading the bis(macrocrown ether)s to form monomers and polymer networks. The extent of threaded vs. dangling macrocrown ethers will be determined from model systems containing hydrolyzable crosslinks. Absolute molecular weight of the linear polyrotaxane precursors and hydrolyzed products will be determined. Previously undetermined solution properties of linear polyrotaxanes, including size, shape and second virial coefficients, will be determined by micro-batch light scattering measurements. The non-covalent nature of the bicyclic crosslinks should provide the networks with maximum microscopic mobility, and at the same time, maintain the macroscopic shape. This structural design should therefore result in an amorphous network of low glass transition temperatures. The polyrotaxane networks will be composed almost exclusively of oxyethylene repeat units, which is the optimum chemical structure for ion mobility in polymer electrolytes. The minimal topological constraints could potentially result in polymer electrolytes with unusually high room temperature ionic conductivities. Solid polymer electrolytes are of interest for chemical sensors and devices, and for thin film battery applications, including expensive uses such as laptop computers, pace makers and electric automobiles. ***